A Diatom Paleolimnology Data Cooperative to Support Climate Change Research

This award is for the continued operation and improvements to the Diatom Paleolimnology Data Cooperative (DPDC) operated from the Academy of Natural Sciences in Philadelphia. The DPDC is a publicly accessible website and database designed to provide scientists, and interested parties, with counts of diatom and estimates of temperature, precipitation, water chemistry, and hydrologic characteristics for use across a broad spectrum of paleolimnological and paleoclimatological studies. The DPDC enhances independent study by a wide variety of US and non-US scientists and educators.